A Distributed Processing Approach to Selective Attention

This research planning grant will allow Dr. Dark to conduct a feasibility study of distributed processing models of selective attention. This is an important topic and this small award will allow her to develop the basis for an expanded independent research program.